DragonflyTV -- Season 4

Twin Cities Public Television is producing 13 new episodes and new outreach and Web activities for the fourth season of DragonflyTV, the weekly science television series targeted at children ages 9-12. The series presents authentic inquiry-based investigations, created by and for children. The programs focus on children doing their own scientific investigations and sharing the excitement that comes from making their own discoveries. The programs also include real scientists doing research on related themes and snapshots and home movies of the scientists when they were kids. Outreach for DragonflyTV consists of an interactive website where children can share their science investigation, programs at selected Boys and Girls Clubs of America and 4H Clubs, Teacher's Guides distributed through the National Science Teachers Association (NSTA) and PBS stations, and the development of new community partnerships with established informal science organizations. Multimedia research and Rockman et al will conduct formative and summative evaluations.